A Biomechanical Approach to Introduce Physics into Biology Curricula

9452083 Best The Biology Department at Colby College proposes to incorporate basic physical principles and mathematical constructs into all levels of the organismal, ecological and physiological curriculum by adopting a biomechanical approach. While physiology is the study of how organisms function, the new and rapidly emerging subdiscipline of biomechanics emphasizes a physical and mechanical approach to function. Both physiology and biomechanics rest upon an understanding of basic physical and mechanical fundamentals. The instrumentation proposed will allow us to include biomechanical laboratory exercises which emphasize basic physical principles in introductory and upper level courses, as well as courses for non- science majors. In addition, the instrumentation will be extensively utilized by students in independent and student/faculty research projects.